An Orthopycnic General Circulation Model

9907008

de Szoeke

This project will finish the initial development of an ocean general
circulation model based on layers defined by orthobaric density
surfaces (an empirically pressure-corrected density), and apply the
model to the North and tropical Pacific. The work will focus on the
formation and evolution of N. Pacific Intermediate Water, the
influence of mean stratification on the propagation of planetary
waves, and a comparison between orthobaric density, potential density
and neutral density.